Connection One-Communication Circuits and Systems Research Center Phase II

The existing Industry/University Cooperative Research Center for Circuits and Systems (Connection One) will continue to receive NSF support for the second five year of their live cycle. The focus of the center is on Communication Circuits and Systems for the advancement of the next generation of wireless and wireline system systems.

The center has had a broad impact on communication, semiconductor, and electronics industry. The research has benefited the wireless industry to develop smaller, more compact, low-power fully integrated new wireless models.